Conference: 2026 Santa Cruz Developmental Biology Meeting

This award supports the 2026 Santa Cruz Developmental Biology (SCDB) Meeting, to be held August 24–28, 2026 at the University of California, Santa Cruz. Since 1992, SCDB has occupied a unique niche as a small, highly interactive, single-platform meeting that brings together approximately 150–200 scientists, trainees, and educators to explore fundamental questions in developmental biology, regeneration, evolution, and organismal diversity. Understanding how single cells build tissues, organs, and organisms is a central problem in biology with direct relevance to human health, since the mechanisms that guide normal development also underlie birth defects, cancer, and tissue regeneration. Unlike large meetings organized around specific model organisms or subfields, SCDB emphasizes broad comparative perspectives and the discovery of general principles that govern development across the diversity of life, advancing the progress of science and national health as articulated in NSF's mission. The meeting places strong emphasis on trainee development, with graduate students, postdoctoral fellows, and early-career investigators presenting a substantial share of the scientific program and receiving mentorship and networking opportunities equal in visibility to those of established researchers.

This award provides partial support for the 2026 SCDB Meeting, themed "Biomedicine, Biomechanics, and the Biosphere." The meeting integrates developmental genetics, genomics, imaging, quantitative biology, biomechanics, ecology, evolution, and engineering within a single scientific program, featuring invited presentations, talks selected from submitted abstracts, and poster sessions. Participants will represent research in plants, animals, marine organisms, microbial symbioses, regenerative systems, and emerging non-model organisms, alongside investigators developing quantitative, computational, imaging, and synthetic approaches. Approximately half of all platform presentations will be selected from submitted abstracts, providing substantial opportunities for graduate students, postdoctoral fellows, and early-career investigators. Through invited talks, selected presentations, posters, and extensive discussion, participants will identify common principles governing development, regeneration, morphogenesis, and cell fate across biological systems, and will accelerate the transfer of new concepts and technologies across experimental systems. Funds will support travel awards for trainees and early-career faculty, with attention to broadening participation across career stages and institution types.

This project advances NSF’s priorities in Biotechnology.